Laboratory Investigation of Particle Acceleration Process by Ion Acoustic Double Layers

One of the key scientific issues of contemporary magnetospheric physics is to elucidate the processes that are responsible for particle acceleration in the auroral region. Acceleration of the particles along a magnetic field requires the action of an electric field which can either be an extended structure or confined to a shock-like structure in a narrow region called a double layer. This grant is to extend previous laboratory investigations of ion acoustic double layers to a plasma parameter regime that is useful for understanding auroral particle acceleration. The experiments consist of creating a series of ion acoustic double layers in a long magnetized plasma column and studying the acceleration of both ambient and test particles across them.